VIGRE II at UCLA : An Outward Looking Approach to Mathematical Research Training (EMSW21-VIGRE)

VIGRE II at UCLA (2005-2010) builds on our first five years as an NSF VIGRE department. This large-scale program enhances education at all levels of Mathematics training while increasing the interaction of education and research activities.

The program has two related goals: (1) to introduce students as early and strongly as possible to research , and (2) to broaden the scope of activities to interactions between mathematics and other scientific and industrial fields. The specifics of the UCLA VIGRE program include: (a) a new summer interdisciplinary research internship program for graduate students, (b) new student research seminars coordinated with the NSF-sponsored Institute for Pure and Applied Mathematics at UCLA, (c) continuing summer research activities for undergraduate students (REUs), (d) a continuing post-doctoral program with special faculty mentoring of both teaching and research, and (e) a developing program to enhance the opportunities for teaching experience for graduate students. The VIGRE II program will support on average 22 graduate students, four VIGRE postdocs, seven summer graduate internships, and eight undergraduate REUs per year.